Excitation Transport and Kinetics in Molecular Materials

The transport, trapping and recombination of molecular energy and charges is relevant to radiation detectors, photoconductors, photovoltaics, optical memories, molecular electronics, heterogenous catalysis, photosynthesis and neural transmission. They will focus on novel reaction kinetics of elementary excitations in low-dimensional media and in materials with structural and energetic disorder. The emergence of non- equilibrium ordered dynamical patterns of excitons, electrons and holes, in disordered molecular media leads to new rate laws for transport and reaction and new tools for the structural characterization of disordered and non-crystalline materials and surfaces.